Effective Dimensions in the Theory of Computing

Effective Dimensions in the Theory of Computing

Abstract

The investigator recently developed effective fractal dimensions in
order to measure the density of information in large data objects.
In this project, he and his group are using these dimensions to
extend the theoretical foundations of high-precision scientific
computing, to study prediction and compression of data streams that
are truly massive relative to available computational resources,
and to attack fundamental questions concerning the number of
computation steps required to solve complex problems.

The research on foundations of scientific computing is incorporating
multiresolution processing of data from continuous geometric domains
in order to develop an algorithmic extension of geometric measure
theory in Euclidean spaces. Investigations of prediction and
compression are focused on computation by finite-state devices and
extend methods of ergodic number theory. Computational complexity
research topics include derandomization, diagonalization, and
dimension characterizations of time-bounded Kolmogorov complexity.
Overall, the project is developing new analytic methods for use in
theoretical computer science, working to achieve a greater unity
between computational complexity and information theory, and
training young researchers to cross traditional boundaries in the
conduct of rigorous research.